Industry/University Cooperative Research Activity: Heavy Media Separations

The use of heavy media separation processes in the treatment of coal and oil shale, in the concentration of mineral ores, and in the reprocessing of municipal solid waste and industrial scrap is significant today, and its use is expected to increase greatly in the future. However, fundamental research at American universities in this important process has been practically zero. Most of the advances in the past 50 years have come from applied research and development in the industrial sector. An experimental research program in 'Heavy Media Separations' with some analysis and model building is being conducted. Since its greatest potential is as a pre-concentration step, the goals of this research are to: increase the ability of the process to separate particles with only a specific gravity difference of 0.02 and improve the process by minimizing misplaced particles.